Dust Formation and Time Variability in Circumstellar Shells (Astronomy)

This research project will concentrate on the analysis of the low resolution spectra obtained with IRAS in order to establish the characteristic dust grain signatures found in the 8-22 micron region. With these spectra, Dr. Little-Marenin will be able to investigate and possibly extend the chronology of dust formation and microwave maser development in relatively older and optically thick circumstellar shells associated with M stars. The time variability of the emission from the circumstellar shells will be investigated by analyzing the IRAS broad band fluxes and the spectra of individual IRAS observations. Analysis of the emission and absorption features observed in the circumstellar shells associated with C stars should provide observational evidence for the carbon-bearing dust grain formation sequence that has been proposed. In addition, Dr. Little-Marenin will teach an Introductory Astronomy course, develop a research seminar on the late stages of stellar evolution and organize a lecture series given by women astronomers. She will also give departmental colloquia, seminars and informal presentations. This project furthers VPW program objectives which are (1) to provide opportunities for women to advance their careers in engineering and in the disciplines of science supported by NSF and (2) to encourage women to pursue careers in science and engineering by providing greater visibility for women scientists and engineers employed in industry, government, and academic institutions. By encouraging the participation of women in science, it is a valuable investment in the Nation's future scientific vitality.